Multi-Level Simulation Methodology: A Computational and Experimental Approach To Neural Systems

The University of Southern California (USC) is collaborating with two institutions in Mexico City (ITAM and CINVESTAV) to advance the methodology of simulating complex systems, with especial application to neural models at different levels of analysis. To provide multi-level simulation we integrate our present neural simulation language NSL with the facilities for object-oriented management of hierarchical structures called schemas provided by the abstract schema language ASL. This will be linked to work in databases for the representation of biological data underway at USC as part of the Human Brain Project supported by several US agencies. Additionally, the project complements a second NSF-CONACyt collaboration, between Georgia Tech and ITAM, that studies the technological issues of `Ecological Robotics: A Schema-Theoretic Approach`. The methodology will provide simulation tools which will help neuroscientists gain a better understanding of the dynamical processes associated with biological phenomena, and a technology with implications far beyond the brain research community.